Separation and Purification: Critical Needs and Opportunities

The funds are used for printing and distributing an additional 1,000 copies of the King Report: Separation and Purification - Critical Needs and Opportunities, published by the National Research Council/National Academic of Sciences.